Upgrade of Electron Microprobe Facility at the University of Chicago

9316062 Steele This award provides two-thirds of the funds required to purchase equipment for the purpose of upgrading the electron microprobe instrument operated in the Department of Geophysical Sciences at the University of Chicago. The institution is committed to providing the remaining funds necessary to acquire the equipment. Equipment items for the upgrade include a vacuum pump, a synthetic layered X-ray monochromator for analyzing light elements such as oxygen and fluorine, a back-scattered electron detector, and an image display terminal. The University of Chicago electron microprobe laboratory provides microanalytical capabilities for a large number of student and faculty researchers needing accurate chemical analyses of materials with a spatial resolution in the micrometer range. The upgrade items are necessary to match the instrument's capabilities with the extensive and growing needs of a broad range of users. ***